MRI: Acquisition of a Gravity Meter for Geophysical research and teaching

1531745
Mickus

Funding from this Major Research Instrumentation (MRI) Program grant will support acquisition of a relative gravimeter to support research and research training in geology and geophysics at Missouri State University, a non-Ph.D. granting institution. The gravimeter would complement other geophysical imaging equipment (e.g. resistivity) at Missouri State and support experiential learning in techniques in exploration geophysics for studies of regional interest thereby fostering their future employability in fields that routinely engage in water, hydrocarbon and mineral deposit studies, an aspect of the proposal that is congruent with NSFs mission of promoting the national welfare.

The investigator will employ the relative gravimeter for studies that attempt to define the subsurface location of magmas in both hot spot volcanic settings and on continental volcanoes, definition of the geometry and location rare earth ore deposits in Missouri, and location and study of the subsurface karst features and basinal structures.

***